Hydraulic Model Data for Two-Dimensional Dam-Break Flows

This work will take advantage of the availability of a 1:50 scale physical model of the Long Dam that includes part of the upstream reservoir and the downstream river, built under the sponsorship of the Washington Water power Co., and presently been used to determine the maximum water levels at the powerhouse in case the dam fails. The testing program will be modified slightly by measuring simultaneously the water levels at sixteen locations (instead of one or two) using precision capacitance probes. The tests will be repeated at least once. The propagation o the wave front will be recorded using a high-speed camera, and maximum water levels on both banks will be recorded using a high-speed camera, and maximum water levels on both banks will be measured. The complete data set recorded in magnetic tape will be made available to interested engineers and scientists. The purpose of this project is to produce quality currently not available, laboratory data to be used in the development of new two- dimensional mathematical models, and in the validation of existing models that simulate the generation and propagation of dam-break waves. The work will be conducted at the Albrook Hydraulic Lab., Washington State University, one of the largest in the country. The P.I. is highly qualified to carry out this project. Consequently an award is recommended.